SHF: Small: Generation of High-Quality Tests by Treating Tests as Proof Encoding

Verification is a bottleneck of crisis proportions in the design
of the hardware and software systems society depends on. The two
main approaches to verification are formal verification and
testing. Formal verification has the advantage that it rules out
the existence of any logical bugs that violate the properties
under consideration. Unfortunately, current formal methods are
not scalable and cannot be directly applied to entire designs. In
contrast, testing is very scalable and is therefore the method of
choice in practice. The disadvantage of testing is that it does
not rule out the existence of bugs, and bugs that escape the
testing process can lead to recalls, software crashes, and even
the loss of life. The research proposed will make testing more
effective by developing methods of test generation that reduce
the probability of missing bugs while simultaneously keeping the
number of tests generated relatively small.

The proposed research is based on the new idea that tests can be
thought of as encodings of proofs. This is a fundamentally
different way of viewing testing, which is traditionally thought
of as a method for sampling the space of all possible system
behaviors. The research will explore several potentially
tranformative directions. The first is that one can effectively
generate small and complete test sets, i.e., tests sets that rule
out the existence of bugs. Another direction is that testing
regimes can be compared by checking to see which lead to test
sets that are closest to encoding relevant proofs. A third
direction is to establish strong connections that bridge the gap
between formal verification and testing. Finally, the proposed
research will lead to the development of efficient algorithms for
test generation that will be applied to a range of important
problems arising in hardware and software verification.